A Proposal of the Renewal of the Banff International Research Station for Mathematical Innovation and Discovery (BIRS)

Inaugurated in 2003, the Banff International Research Station (BIRS) has
developed, through a unique scientific partnership between the United
States and Canada, into a tremendous resource for the world's scientific
community. In 2006, the two countries will be joined by Mexico to make
BIRS the premiere research center for mathematical sciences in North
America.

Starting in 2006, BIRS will host an expanded schedule of weekly
workshops, pursuing an extremely broad program, embracing all aspects of
the mathematical sciences, from the most fundamental work on the great
problems of algebra, geometry and analysis to modern pure and applied
mathematics, theoretical and applied statistics, financial and industrial
mathematics, the mathematics of information technology and computer
science, bio-mathematics and math education. BIRS provides an environment
that optimizes creative interaction and the exchange of ideas, knowledge and
methods within the mathematical sciences and with related sciences and
industry. Recent PhD's and graduate students as well as members of
underrepresented groups are especially encouraged to organize and
participate in BIRS activities.

BIRS is administered by the Pacific Institute for the Mathematical
Sciences (PIMS) with the support of the Berkeley-based Mathematical
Sciences Research Institute (MSRI), the MITACS Network of Centres of
Excellence, as well as the Instituto de Matematicas at the National
University of Mexico (UNAM). The BIRS scientific program is developed by
an independent Scientific Advisory Board consisting of thirty of the most
eminent mathematical scientists in the world.